RUI: Multichannel Three-Body Scattering via the Faddeev Equations

9515328 Hu The Faddeev equations are used to study the general problem of three interacting Coulomb particles of arbitrary mass. The methodology employed is to solve the resultant, coupled equations using a spline basis. Of particular interest are those three body systems involving muons. ***